Thin Film Ferroelectrics

This project is a collaborative effort to study thin film ferroelectrics. The team is composed of a synthetic solid state inorganic chemist (academic), an electron microscopist/materials scientist (academic), and a solid state physicist and characterizations laboratory (industrial). The purpose of this project is to gain a thorough understanding of how synthetic methods modify the properties of thin film barium titanate and lead zircornium titanate. The thin films will be prepared using two substantially different processes: chemical vapor deposition and organo-metallic decomposition (sol-gel type chemistry). Different experimental approaches will be examined within these two general synthetic methods. Careful structural and chemical characterization of the films will be performed to determine the effects of the synthetic process. Detailed physical methods will determine the ferroelectric properties of these films and there resistance to failure. It is the goal of this project to correlate the processing method with the ferroelectric properties and to optimize the synthetic plan. This project is being supported jointly by the Division of Materials Research and Division of Electrical and Communication Systems.